Synthesis and Properties of New Early Transition Metal Sulfides

The aim of this research is to investigate synthesis, structure, and properties of new early transition metal sulfide phases. The proposed compounds will have perovskite related or layer structures and transition metals with do to d1 configurations. A variety of synthetic techniques will be employed such as BaCl2 flux reactions, CS2 sulfiding reactions, and sulventothermal reactions. All compounds will be characterized by XRD, transport, and magnetic measurements. These compounds will allow comparisons of the structures and properties of isocompositional oxides and sulfides in the areas where metal insulator transitions occur. The importance of structure and covalency in the formation of new metallic solids will be addressed. %%% The aim of this research is to investigate synthesis, structure, and properties of new classes of unexplored solid state materials. These compounds will comprise early transition metals (Ti, Zr, Hf, V, Nb, Ta) and sulfur. Attempts are made to design features into these materials that are known to be important in the copper oxide superconductors. The atomic structure and properties of the new materials will be determined. The importance of structure and bonding in the formation of new materials, with desirable properties such as metallic behavior and/or superconductivity, will be addressed.